Dissertation Research: Obsidian Procurement and Production at San Martin Jilotepeque, Guatemala

Under the direction of Dr. E. Wyllys Andrews, Mr. Geoffrey Braswell will collect data for his doctoral dissertation. Mr. Braswell has participated in an archaeological project which has studied the prehistory of the San Martin Jilotepque area of Guatemala. In during much of this time the region was an important trade center because it contained abundant obsidian resources. Before the introduction of metal tools, this form of volcanic glass was highly prized because flakes formed and held sharp edges which were used as cutting tools. Studies have indicated that obsidian was widely traded both across and beyond the Mayan area and that this trade may have played an important role in the development of Mayan civilization. To date Mr. Braswell has located the geological source areas of San Martin Jilotepque obsidian and charactered them by neutron activation analysis. The results show that different regions have distinct chemical signatures and thus archaeological materials can, in principle, be matched to source of origin. A survey to locate obsidian working areas has been carried out and small scale excavation conducted. With National Science Foundation support Mr Braswell will now analyze the materials collected. He will conduct additional neutron activation analyses to characterize sources more precisely. Study of ceramics and radiocarbon dating of related materials will allow the construction of a more precise chronology. Through study of obsidian remains recovered at archaeological sites the process of manufacturing and distribution will then be ascertained. Because it was so spatially localized and so widely traded, it is clear that obsidian played a major role in prehistoric economic and social system of the Maya. Just how this production and trade was organized however is not well understood. With his focus on a limited region with rich obsidian resources Mr. Braswell should gain important insights into this process. This research is important because it will increase our understanding of how complex societies emerge and are maintained. It will also assist in the training of a promising young scientist.